DUSEL R&D: Development of a Novel Scintillation Lattice Technology for a Low-Energy Solar Neutrino Spectrometer

The sun offers the highest matter density, the longest baseline, pure electron-neutrino flavor at the source and the highest neutrino flux with the lowest energies for studying neutrino flavor phenomenology and to pursue detailed questions on solar astrophysics. A precision measurement of the neutrino luminosity of the sun is possible only by the detection of low energy (less than 2 MeV) solar neutrinos that contain more than 99.9% of the flux. The development of low energy neutrino detectors is one of three priorities set by the 2004 APS Mutidivisional Study on Neutrinos.

One way to meet the experimental challenge of real time low energy neutrino detection is the Indium-based Low Energy Solar Neutrino Spectrometer (LENS). A key innovation is a novel scintillation lattice design for a granular detector for locating nuclear events and applying the space coincidence tag of the In neutrino capture reaction. With this technology, the development of the Indium liquid scintillator, and with new background suppression concepts, the physics objectives for LENS can be met in 125 tons of liquid scintillator containing 10 tons of In. The funds awarded for the R&D proposed here aim at the construction of a modest size prototype detector, MINILENS, at ~1% the size of the full scale LENS. This proposal specifically requests funds to develop the scintillation lattice technology and to construct an optical lattice.

The broader impact includes the chemistry and engineering of In-loaded liquid scintillators with work impacting applications such as neutron detection in industry and in homeland security; and measurements of cosmogenic and other background radiation effects relevant for low level counting techniques for forensic, national security, archeological and atmospheric investigations.